Enzymatic Mechanisms and Regulation of Solvent Production in Butanol/Acetone Fermentation

The objective of this research is to understand, at the enzyme level, the biochemical events which lead to and control solvent production in the butanol/acetone fermentation. Elucidation of the control mechanisms of solvent production will suggest direct butanol selectivity, and yields. The latter determne the economic feasibility of this important fermentation. The activity levels of 12 key product-formation enzymes will be measured at various stages.